Research Experiences for Mechanical Engineering Undergraduates

The major objective of this REU Site is to provide hands.on experience in active research to eight undergraduate students in mechanical engineering, including four student from schools with limited research opportunities. The undergraduate students will carry out research under a senior professor in each of four major research areas: vibrations/acoustics, internal combustion, biomechanics, mechanisms/design. A special feature of the ecperience is that during summer semesters the students will be able to work in industrial research labs of collaborating firms. The selection procedure promotes involvement of minority blacks and women. Student growth and independence in research work will be encouraged through regular guidance, including weekly discussions and thorough evaluation of objectives and summaries of work accomplished. A peer review system whereby students provide constructive criticism to improve work of other students will also be employed.